Curation of pelagic and coastal fish specimens from the tropical eastern Pacific and infrastructure enhancement of the SIO Marine Vertebrate Collection

This project will curate an orphaned collection of 27,000 pelagic fish specimens from
remote areas of the tropical eastern Pacific Ocean and 400 historical collections of coastal fishes.
These will add significantly to the Marine Vertebrate Collection’s strengths in pelagic and deepsea
fishes, and eastern Pacific coastal fishes. A digital radiography system will be installed to
enhance curatorial procedures and research capabilities and otherwise unavailable collection
records will be digitized and posted on the Marine Vertebrate Collection (MVC) web site.

These orphaned and historical collections and MVC records will significantly augment
studies on systematics, biogeography and development of fishes and contribute to research on
how human activities and climate change have affected fish communities in the eastern Pacific
Ocean. Scripps Institution of Oceanography is a world-renowned institution of ocean research
and education and the MVC is one of the largest fish collections directly affiliated with an
institution of higher learning. This project will provide training in collection management
techniques and fish systematics to graduate and undergraduate students. Information from these
collections and archives will be made available to researchers via the web and will augment
outreach and teaching efforts by MVC staff, the Birch Aquarium at Scripps, and others.